Doctoral Dissertation Research: Communities and Sociopolitical Integration in Pre-Columbian Dominica, West Indies

Under the direction of Dr. Michael Heckenberger, Isaac Shearn will conduct a one-year archaeological study of Dominica, a volcanic island in the southern Lesser Antilles noted for its intense topographic variability, rugged coastline, high rainfall, dense tropical forests, and fertile volcanic soils. The main objective of the project is to characterize settlement patterns and artifact variability within and between micro-regions in order to determine the degree of integration between communities on Dominica during the Late Ceramic Age (ca. A.D. 1000-1500). The project provides the basis for Mr. Shearn's doctoral dissertation research.

Relatively little archaeological work has been done on the pre-Columbian period in Dominica in comparison to most other islands in the region. The proposed research represents the first major syntheses of long-term archaeological investigations on this island. The proposed research will help resolve important problems in contemporary Caribbean archaeology, as well as test new geospatial methods for identifying communities in the archaeological record of the islands. By applying contemporary theory on the archaeology of communities to region-specific problems, this research will advance both the understanding of regional community organization, and broader theoretical and methodological issues surrounding the concept of community in Anthropology. In particular, this project will help identify the nature of socio-political integration in smaller, rich islands of the Lesser Antilles, and whether they represent small scale complex societies, which has broad relevance to understanding similar settings in other world areas.

Three primary research questions guide the study:
1) Were multiple sites within micro-regions integrated communities or do sites represent basically autonomous local communities?; 2) Were communities within micro-regions autonomous or were they integrated with other such communities in other micro-regions into higher-order regional communities?; and 3) If integrated, how were higher-order communities organized with respect to sociopolitical hierarchy and/or heterarchy within and between micro-regions? To address these questions, specific objectives of the proposed research include: identification of sites; characterization of variability in terms of site size and structure; characterization of relations between sites within the micro-region based on distance, intervisibility, and geographic setting; and collection of artifacts to provide evidence of interaction, including intra- and inter-island exchange. Excavations and systematic surface collections will be conducted within three micro-regions of Dominica to provide comparable datasets from each micro-region, and from multiple sites within each micro-region. The analysis will indicate whether communities included hierarchical characteristics, such as centers for specialized socio-political, ritual or economic activities or were more heterarchical, involving structurally similar and/or autonomous local groups.

The proposed research will include significant public outreach initiatives designed to promote cultural heritage management by raising awareness about the island's Amerindian history and the value of archaeological sites as cultural resources; and promote local participation in the execution, interpretation, and presentation of the research. To accomplish these objectives, Mr. Shearn will present lectures at community centers and schools, and participate in radio broadcasts; produce informational posters and exhibits for display in village community centers and national parks; design an exhibit for the Dominica Museum; and provide opportunities for students and others to participate in all stages of the research and design methods for the dissemination of the results.